Theory of Atomic, Molecular, and Optical Processes

This proposal addresses the development of new nonperturbative theoretical formalisms and
time-dependent methods for detailed ab initio investigation of the electronic structure and quantum
dynamics of many-electron Rydberg atomic and diatomic molecular systems in the presence of intense external fields. Problems considered include:

1) Structure and Dynamics of One-Valence-Electron Rydberg Atoms in Microwave Fields.

2) Development of Self-Interaction-Free Density Functional Theories for the Treatment of the Electronic Structure of Many-Electron Rydberg Systems.

3) Time-Dependent Density Functional Theory (TDDFT) for the Treatment of Multiphoton Quantum
Dynamics of Complex Rydberg Atoms in Time-Dependent Fields.